2009 MSU Biofuels Conference: The Next Generation of Biofuels

0936631
Hernandez

This conference grant will help to support costs for the "2009 Mississippi State University Biofuels Conference: the Next Generation of Biofuels," to be held in Jackson, Mississippi, August 6-7, 2009. The conference will aid in the dissemination of the latest biofuels research in the areas of catalysis, feedstock preparation, and resource utilization. It is also intended to foster collaborations among researchers in industry and academia, resulting in the further advancement of biofuel technology.